Planning Grant Proposal for Establishing Research Site for I/UCRC Connection One

A planning meeting will be held to study the feasibility of establishing a research site for the Industry /University Cooperative Research Center "Connection One", lead by Arizona State University at Rensselaer Polytechnic Institute. The research focus of the proposed research site will be basic and applied interdisciplinary research in secure optical and electrical data transport, switching, and processing. This research will include materials, devices, systems, and information technology, requiring long-term commitment to achieve the orders of magnitude improvements needed in the speed, density, power, cost, and reliability of secure data transport and communications.